On the Non-Linear Dynamics of Flames Fronts

Evolution equations describing the dynamics of oscillatory and spinning flames in solid fuel combustion are to be derived and studied in this analytical/numerical research project. The mathematical flexibility of the basic model will be increased by adding a free parameter to the boundary conditions. This enables one to bring the system to a low frequency limit without altering its mathematical nature. The temporal and spatial scales are separated and an asymptotic solution is sought which does not require expanding the nonlinear kinetics term. Preserving the transcendental nonlinearity is crucial in obtaining qualitatively correct oscillatory dynamics. A totally new technique has been devised to tackle the highly nonlinear problems associated with the dynamics of oscillatory and spinning flames. The problems to be tackled will help to explain the physical observations made in solid and gaseous fuels combustion, and will be particularly useful for advancing our understanding of the combustion synthesis of new high temperature materials.